Postdoctoral Research Fellowship in Biosciences Related to the Environment for FY 1997

Abstract DBI 9750295 Carol Goodwillie This action funds an NSF Postdoctoral Research Fellowship in Biosciences Related to the Environment for 1997. This fellowship provides an opportunity for the Fellow to gain additional scientific training beyond the doctoral degree and to pursue innovative and imaginative into the fundamental mechanisms underlying the interactions between organisms and their environment at the molecular, cellular, organismal, population, community and/or ecosystem level in any area of biology supported by the Directorate for Biological Sciences of the National Science Foundation. Each fellowship supports a research and training plan to be carried out in a sponsoring laboratory. The research and training plan for this fellowship is entitled "Genetic basis of floral traits associated with mating system divergence." Knowledge of the genetic basis of adaptation is central to understanding evolutionary processes. Floral traits associated with mating systems are prominent adaptations of higher plants. DNA marker-based genome mapping techniques are being used to investigate the number and magnitude of loci controlling floral traits distinguishing 2 species of Linanthus that have diverged in mating systems.